High-order boundary perturbation methods for the solution of problems of wave propagation

This project is concerned with the study of the response of complex
objects and materials to electromagnetic radiation. In particular,
theoretical and computational advances are projected in the solution
of classical problems of wave scattering by obstacles and interfaces.
Such progress will stem from the further development of a new approach
to these problems, based on high-order perturbation and analytic
continuation techniques, that was previously introduced by the principal
investigator (PI) and which has been proved to deliver very accurate
results for a variety of configurations. The investigations to be
carried out relate to the analysis and possible improvement of each of
the elements that combined to produce these highly precise calculations
and, in particular, with their influence on the applicability and
accuracy of the resulting numerical codes. Concurrent with this effort
on the electromagnetic return of macroscopic objects, the PI will work
to enhance his recently devised algorithms for the simulation of
electrically conducting and/or magnetically permeable microscopic
particulate suspensions, by incorporating a variety of nonlinear
hydrodynamic and electromagnetic effects.

The generation, control and detection of electromagnetic radiation has
been, and continues to be, at the core of innumerable engineering and
technological advances in areas ranging from radar and tomography to
optical systems, communications and "smart" materials. Historically,
most of these advances have resulted from expansive experimentation
guided more by intuition and physical insight than by mathematical
modeling and computations. Recently, as computers grew more powerful,
it became natural to attempt to incorporate them into design processes,
and the search for fast, accurate and reliable algorithms to numerically
solve sophisticated models turned into one of science's central problems.
This project revolves around this search as it seeks to enhance currently
available techniques for the determination of the electromagnetic
signatures of large objects and microscopic composite dispersions.
Particular areas of application where the methods to be developed here
are expected to have a direct impact include target recognition and the
design of advanced controllable (electro and magnetorheological) fluids.